Teaching Phonemic Awareness to Children in Head Start: A Randomized Evaluation of Two Approaches

This is a planning grant to develop a research plan to explicitly test the comparative effectiveness of an instructional approach that teaches phoneme manipulation versus and alternative approach emphasizing general pre-literacy skills. The project outcomes will provide systematic experimental data addressing the specific types of phoneme awareness instruction that could be effective in teaching disadvantaged preschool children the reading skills that will best prepare them for later academic success. The project will be based in Boston Head Start programs.